Introduction to Dielectric Spectroscopy for Polymer Analysisand Identification of Plastics for Recycling

9451871 Snyder This project is improving undergraduate chemical engineering education by introducing the investigation of molecular dynamics for the characterization and analysis of polymers in the polymer and materials science laboratories. This enhancement is being accomplished by developing new experiments using a Tetrahedron Audrey 380A Dielectric Spectrometer System. These experiments provide students with insight into the molecular basis for polymer properties, many of which are strongly linked to chain dynamics and molecular mobility. Without this hands-on experience in polymer structure-property relations, it is extremely difficult for the students to apply classroom concepts to the design, development and fabrication of advanced materials. Using this equipment to perform experiments, the students are able to study important problems such as the fabrication of advanced composites and the recycle of plastics. An outcome of these problem- solving laboratories will be scientists and engineers with considerable experience in materials engineering.